CAREER: Structural and Algorithmic Foundations of Variational Inequalities in Machine Learning: From Principles to Scalability

Many important recent advances in machine learning and data science involve systems with several interacting parts. In such settings, problems are often formulated as multi-person or multi-objective systems, in which several models, agents, or decision makers pursue interacting objectives. Unlike traditional optimization settings, where the goal is to minimize a single objective function, these problems often seek a stable outcome, or equilibrium, for a system with interacting objectives that may compete or cooperate. Existing mathematical and algorithmic tools do not yet fully explain when such systems are reliable, stable, and scalable. This CAREER project seeks to develop foundational principles for understanding such interacting systems and translating these insights into scalable methods for large-scale machine learning problems. The proposed theoretical and algorithmic tools have potential relevance beyond machine learning, including applications in engineering, healthcare, finance, economics, energy systems, and software engineering. The project will also integrate research, education, dissemination, and outreach. The resulting advances will be incorporated into undergraduate and graduate teaching, and project activities will include undergraduate student involvement, outreach to K-12 students through the Johns Hopkins Center for Educational Outreach, and the development of open-source, reproducible research resources.

The technical focus of this project is the theory and algorithms of variational inequalities, a general mathematical framework that encompasses a wide variety of optimization and game-theoretic formulations. Despite the broad applicability of variational inequalities and the development of advanced methods for solving them, significant gaps remain between theory and practice. This CAREER project seeks to bridge the existing theory-practice gap by pursuing three complementary research directions centered on (i) the dynamics and structure of variational inequalities, (ii) stochastic algorithms for large-scale variational inequality problems in machine learning, and (iii) game-theoretic federated learning. First, the project will investigate practical regularity conditions that can weaken restrictive classical assumptions such as monotonicity and Lipschitz continuity, which often fail to hold in machine learning settings. This direction will also develop new adaptive step-size rules for extragradient-type methods that leverage local operator information to improve convergence dynamics and reduce reliance on global parameter tuning. Second, building on these structural and dynamical insights, the project will study the theoretical and algorithmic foundations of stochastic variational inequality methods suited to high-dimensional data and limited computational resources, as is common in large-scale machine learning. Third, the project will explore the capabilities and limitations of game-theoretic federated learning through the lens of variational inequality theory, focusing on algorithmic foundations and communication-efficient protocols for clients with heterogeneous objectives and strategic behavior. The resulting theory and algorithms will be evaluated and illustrated through representative applications, including multi-agent reinforcement learning, adversarial training, image classification, distributed control of multi-agent systems, and medical imaging.